Dissertation Research: Behavioral Significance of Industrial Variability in the Levantine Mousterian

Understanding the origins and spread of anatomically modern humans and their ecological and behavioral relationships to other hominid forms, especially Neanderthals, has long been a concern in human evolution. Only recently, however, have appropriate archaeological tools been developed to shed light on this problem. In this project the researcher will distinguish the activities of these two hominid groups. Hominid strategies for lithic raw materials procurement, patterns of tool use and the spatial structure of hominid activity will be examined at the sites of Kebara, Tabun, Qafzeh, Hayonim, Rosh Ein Mor, and Boker Tachtit in Israel. Lithic sources near the sites will be sampled to establish local procurement strategies while wear patterns on known tools will be reconstructed to assess the role of tool use in shaping tool kit variability. This project will make it possible to evaluate and differentiate the paleoecological and technological strategies associated with Neanderthal and anatomically-modern Homo sapiens.